REU: Training Program in Biosocial Adaptation: Assessment of Paleonutritional Techniques

This is a Research Experiences for Undergraduates project. It provides research experiences for eight students at the University of Rhode Island. Students will participate in projects involving anthropology and paleonutrition.